Statistical and Computational Methods for Data Management and Analysis in Molecular Genetics

9413215 Ewens This award provides support for an interdisciplinary training program in computational aspects of modern genetics. Topical areas include algorithm development, molecular evolution, sequence alignment, statistical inference, and other aspects of biological informatics. These areas are central to one of the most multidisciplinary approaches to modern biology. The faculty group includes 19 investigators from the departments of computer and information science in the school of engineering, the departments of mathematics and biology in the school of arts and sciences, and the departments of genetics and human genetics in the school of medicine. The group includes junior and senior investigators, several of international reputation. The training program will center around 8 new or existing core, additional new elective courses, a journal club and seminars. Students are expected to enter with backgrounds in computer science, mathematics or biology. Training will emphasize molecular biology, and genetics, computer science, statistics and probability, but will be tailored to the needs of individual students and an optional industrial internship program is planned. This award is also being supported by the Computational Biology Activity and by the Database Activity in the Biological Science, both in the Division of Biological Instrumentation and Resources. ***